Undergraduate Statistics Lab

Students are studying statistics in a laboratory environment that is realistic in terms of the size of data sets and the type of computer environment in which they are working. Graphical displays and hands-on experience are further motivating students.For example, introductory students are able to obtain a large data set, run a multiple regression on it, do various statistical tests, and look at residual plots to analyze the aptness of the